Physics of Random Materials and Processes

In this three-year U.S.-Yugoslav cooperative research project between Sava Milosevic, University of Belgrade, and Eugene Stanley, Boston University, the investigators will continue their theoretical work on the physics of novel materials and processes. Certain behavioral aspects of materials, in particular polymers, will be studied: (1) crossover from fractal lattice to Euclidean lattice; (2) lipid aggregation in model biomembranes; (3) conduction in disordered materials; and (4) fluid mechanics of dentritic solidification. The research will advance understanding of the physical laws governing the morphology, microstructure and processes of novel materials. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.